Acquisition of a Laser Ablation High Resolution Inductively Coupled Plasma Mass Spectrometer for Isotopic and Elemental Analyses of Calcified Structures in Aquatic Organisms

This Major Research Instrumentation award to Woods Hole Oceanographic Institution in Massachusetts provides funds for acquisition of a fast-scan, high resolution, inductively coupled plasma-mass spectrometer with laser ablation capability. The instrument will be operated as part of a new Marine Research Facility, which will emphasize fisheries, climate and oceanographic research using trace element and isotopic analysis of calcified structures, such as fish otoliths, mollusc shells, foraminiferal tests, and sponge and coral skeletons. The project is supported by the Division of Ocean Sciences at NSF. Woods Hole Oceanographic Institution will provide cost-share support from non-federal funds for 30% of total project costs.